Penn Summer Science Academy

The University of Pennsylvania Summer Science Academy is a four week, residential/commuter program for thirty-five academically talented and promising ninth- and tenth-grade students from the mid-Atlantic region. Additional minority students are to be recruited, in large measure, through a network of teachers and other referral sources arising from existing programs for high school students conducted by the College of General Studies of the University of Pennsylvania. The central focus of the Science Academy is a sequence of biochemistry lab experiments, coordinated with readings and classes. Beginning with the spectroscopy and oxygen-binding properties of hemoglobin, and the role of ATP as an energy source, student teams, working under the guidance of University faculty and high school teachers, progress to independent investigations. Mathematics classes, readings, and activities explore polyhedra, fractals, exponential growth and decay, and other manifestations of mathematics in nature. Students sharpen their computer skills by writing programs to solve challenging problems, and discuss current issues in computing such as privacy and computer viruses. Twice-weekly seminars, led by scientists from Penn and other institutions, introduce students to the world of the working scientist and to some of the social and philosophical issues in science.